Mesoscale Influences on the Initiation and Development of Clouds and Precipitation

Improved forecasts of the timing and location of localized rainfall events are dependent on improved understanding of the processes responsible for the initiation and organization of convective storms. Convergence along mesoscale atmospheric boundaries and topographic effects are primary mechanisms for convective cloud initiation and development and in determining the mesoscale distribution of precipitation. Using numerical simulations and data from previous field experiments, the Principal Investigator will examine the contributions, interactions and sensitivities of the physical processes leading to convective storm development. Emphasis will be placed on the role of mesoscale atmospheric boundaries and topographical effects. //